Reconstructing Spatial Patterns of Glacial Erosion: A New Approach Using Cosmogenic Nuclides

Elmore, David Purdue U. This research will use cosmogenic nuclide techniques to address a classic issue in mountain geography-the spatial pattern of valley-scale glacial erosion. The debate which centers about the mechanics of process in the formation of glacial landforms is unresolved. A constraint has been the lack of reliable knowledge of the pre-glacial form. Cosmogenic radionuclides in rock do provide information about past erosion of material from the rock surfaces. This information coupled with approaches that predict the spatial pattern of erosion as a function of erosion mechanisms and controls can provide new understanding of valley-scale erosion patterns and processes. To test the approach, cosmogenic nuclide techniques will be used to measure bedrock loss at study sites in the Middle Popo Agie drainage basin, Wyoming and the South Yuba River Gorge, California. The research will demonstrate how cosmogenic nuclide approaches can be used to reconstruct large-scale patterns of bedrock erosion. The results will enhance our understanding of valley-scale topography and provide new information on the role of landscape development in altering the relationship between climate change and glaciation.